State-of-the-Art Industrial Ergonomics and Safety Laboratory

An industrial ergonomics and safety laboratory is being developed to provide opportunities for undergraduate students to learn to design industrial tasks within the capabilities of the workforce. This laboratory is a second course in work methods and work measurement techniques and will facilitate the study and measurement of kinematics and kinetics of human motions. This project is being matched by an amount equal to the award.